Digital System Level Synthesis Tools

Thomas This research is on algorithms and techniques for system- level synthesis of digital electronic systems. Inputs to the system are intended to be high level specifications in terms of system behavior. Research builds on two existing design systems; the system architects workbench, and a microcomputer board design system, called MICON. Research issues being investigated are: partitioning specifications for appropriate style selection, synthesis - including learning and problem solving approaches, internal representation of design information, system level design representation and human interface, and controlled iteration with different types of synthesis tools (design process control). The algorithms are being integrated into a prototype system-level synthesis framework.